Travel Support for Students to Attend a Symposium on the Influences of Behavior-Based Robotics on the Field

This is funding for approximately 50 students to attend a full day symposium on the impact of behavior-based robotics on over 25 years of robotics research and development, which will be held on Friday, March 9, 2012, on the MIT campus, immediately following the ACM/IEEE International Conference on Human-Robot Interaction which takes place this year in Boston. The symposium's primary focus in on possible future research trajectories; to this end, the symposium will examine the impact of the approach on both academic research and commercial development. For example, the relationship between the subsumption-based robots of the late 1980s and the Roombas being sold today is clear: the Roomba very much resembles the insect-like robots Genghis and Attila in its programming and behaviors. Are there such connections to all robot systems currently under development? The symposium will examine several questions, including the successes of behavior based robots, the adaptations made to this paradigm in order to develop robots for more complicated tasks, and the likely trends in robotics research and development over the next decade.

The symposium is structured into four main sections. The first section will address the early years of behavior-based robotics and the subsumption architecture, exploring the initial controversy and early work in this domain. The second section will look at the global impact of the work, discussing related research in labs around the world and how behavior-based robotics have been used and expanded in many different robotics domains. The third will look at the connections between behavior-based robotics and other research areas such as multi-agent learning and computer vision. The final section will explore the legacies of the work, both in terms of research and commercial robot development, and the future prospects for behavior-based robotics.

Broader Impacts: Student attendees at the symposium will have an opportunity to meet and network with a community of top robotics researchers, opening up channels for collaboration and mentoring. Faculty advisors will be able to introduce their students in-person to the field's luminaries (as most students will have their faculty advisor present); these introductions, combined with the relatively small size of the gathering, promise to provide a more personal, more memorable, and, thus, more influential experience for the students. This event will provide students with many opportunities for making connections with faculty, with people working in robotics companies, and with other students. These networking opportunities may lead to future collaborations and research.